FY 1997 Support of the Federal Laboratory Consortium for Technology Transfer

9726324 Funds transferred to NIST for FY 1997 to support the activities of the Federal Laboratory Consortium for Technology Transfer.